Summer Physics Research Program for Undergraduates (Physics)

This award was made to Professor Newman at the University of California, Irvine as part of the Research Experiences for Undergraduates program. It will support undergraduates working with research scientists on research projects of mutual interest. This program is designed to encourage further study in the sciences by undergraduates. It is a response to the growing need for trained scientists and engineers.